Fostering Emotional Intelligence with Pre-Service STEM Teachers in Rural Districts

This Noyce Track 1 project aims to serve the national need of preparing highly-qualified STEM teachers. This project will support at least 16 scholars in STEM majors including mathematics, biology, chemistry, and environmental science by providing scholarships and participation in professional learning communities and follow-up support in the initial years of teaching. The proposed project components will enable high-achieving preservice teachers to become secondary STEM teachers with extensive expertise in their STEM discipline and universal classroom management.

This project at Bemidji State University includes partnerships with a local nonprofit, Peacemaker Resources, Red Lake Nation College, community colleges including Minnesota North, Normandale, and North Hennepin, as well as high-need school districts including Bemidji, Red Lake, Trek North, Laporte, and Brainerd. Project goals include (a) recruit and educate at least 16 highly qualified undergraduate students to double major in STEM (biology, chemistry, mathematics, or environmental science) and professional education who are prepared to support students in high-need schools, (b) enhance undergraduates’ knowledge and skills through participation in bi-monthly learning community trainings on universal classroom management skills, (c) build a professional learning community among Noyce Scholars to support coursework completion and begin teaching, and (d) support the long-term success and retention of new teachers in the workforce for up to two-years post-graduation through a monthly professional learning community. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation questions: (Q1) How does integrating professional learning communities with STEM preservice teachers enhance the effectiveness and retention of Noyce Scholars during their initial years teaching? and (Q2) How does integrating universal classroom management strategies affect Noyce Scholars during their initial years of teaching? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarship and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.